Symbolic Analysis of Large Analog Circuits

This research explores algorithms and techniques for symbolic analysis of large linear or linearized integrated circuits in the complex frequency domain. The approach is to extract transfer functions of circuits in symbolic form. In the case of large circuits, approximate symbolic network functions, in expanded or nested format, are generated. Both perturbation-based, and tree enumeration approaches are being used. The symbolic algorithms and simulators are being integrated into an analog design automation system.